Ohio State Univ Center for Radio Frequency Systems

The Ohio State University is proposing to join the Arizona State University, University of Arizona, Rensselaer Polytechnic Institute and the University of Hawaii existing Industry/University Cooperative Research Center for Communications Circuits and Systems Center (Connection One). This research site would increase the research capabilities and activities of the Center by focusing on measurements and system design activities, passive and active component integration for multifunctional all-in-one devices and high data rate activities.